1990 Symposium on Applied Computing

In this project the University of Arkansas-Fayetteville will plan, organize and conduct a Southwestern regional conference in applied computing. Participation in this past year's conference has established it as an important regional forum for information exchange and technology transfer, technology outreach and research presentation in the Southwest. Last year's sponsors and associates include the NSF, both the ACM and IEEE-CS, seven regional universities and private industry. It is their expectation that this year, the conference will begin to attract national visibility and, as a result, take a great stride toward self-support.